Center for Biological Timing Laboratory Renovation Project.

The Center for Biological Timing consists of 20 laboratories, 17 of which are at the University of Virginia. This award will renovate laboratory space for five center investigators as well as core facility research and research training space for all investigators. The renovated laboratory space will be located in the Department of Biology and in the multistory building of the Health Science Center. The total amount of renovated space is approximately 12,000 gross square feet and will be used for the latest molecular bio-technology applied to biological timing. The improvement of the laboratory space will greatly enhance the research productivity and research training opportunities in the Center laboratories.